An Undergraduate Radio Science Laboratory

9351533 Palmer This project supports the development of an undergraduate laboratory in radio science. The radio science facility would join a night time optical observatory and a student solar observatory (based on a heliostat) as alternatives to the traditional physical science laboratories: as opportunities for non-science majors to work with and master a piece of state of the art instrumentation. The University has a radio antenna which was installed and outfitted with low noise amplifiers and a continuum radiometer at Departmental expense. With relatively modest additional expenditure, two major new areas of activity are being opened up to students: radio frequency spectroscopy of interstellar gas and radar and communications studies based on reflecting signals from the moon. The radio facility furthers the teaching of non-science majors in three important ways: first, in the laboratory situation, many fundamental concepts such as wavelength, the electromagnetic spectrum, black body radiation, and absorption lines, become much more concrete because they relate to things students can see and "play around with"; second, by participating in the same type of activities as do modern astronomers, students gain a clearer idea of how science is actually done; and, third, this type of laboratory has proved to hold the interest of the students much better than do the traditional laboratories. The spectrometer designed and built in this project can be replicated at very modest cost. printed circuit boards, plans, and software are being made available to other interested institutions. ***